Lattice QCD Studies of Baryon and Meson Excitations Using Spatially-extended Hadron and Multi-hadron Operators

Quantum chromodynamics (QCD) is the currently accepted theory of
the strong nuclear force which binds quarks and gluons together to form
hadrons, such as the proton and neutron. Understanding hadron formation
is a long standing problem in nuclear/particle physics. A major objective
of this proposal is to use large-scale computer simulations with QCD
formulated on a space-time lattice to carry out ab initio determinations
of the mass spectrum of hadrons expected from the QCD theory. The novel
feature of the proposed activities is the use of large sets of spatially
extended hadron operators in order to study more-massive excited hadron states,
not just the lightest states. These states are currently of great interest
to experimentalists, exemplified by the Hall B N-star program and the GlueX
experimental program in the proposed Hall D at the Thomas Jefferson National
Accelerator Facility, as well as the CLEO-c project at Cornell. Understanding
the physics of quark confinement within hadrons is also an important
intellectual challenge; in fact, the Yang-Mills mass gap is one of the
seven so-called Millenium Prize problems announced by the Clay Mathematics
Institute of Cambridge, Massachusetts. The proposed research incorporates
the participation of two graduate students, and possibly one or more
undergraduate students, whose educations will be enhanced not only
by involvement in scientific projects at the forefront of nuclear theory,
but also with high-technology training in the use of state-of-the-art
parallel computing resources. Students will be funded to participate in
international conferences. The broader impacts of the proposed activities
will be strengthened through articles in popular publications and by posting
results with simplified background information on publicly accessible web pages.